Gravitational Physics from the Cosmic Microwave Background

Professors Lyman Page, Suzanne Staggs, and David Wilkinson will measure
minute variations in the temperature and polarization of the cosmic
microwave background radiation (CMB). The CMB is now widely accepted as
the remnant radiation from the fiery big bang. It is the oldest light
in the universe and may be thought of as a fossil of the cosmic
conditions that gave rise to such objects as galaxies. The CMB has
cooled with the expansion of the universe so that it now emits
predominantly in the microwave region of the spectrum. The research
focuses on two open questions: to what degree is the CMB polarized and
how does the intensity of the radiation vary from position to position
on the sky on angular scales of order a tenth the size of the moon.
Both questions are pursued through the development of new
instrumentation coupled with new observational and data analysis
techniques.

Cosmology is in the midst of a revolution. Through new technologies and
techniques, coupled with theoretical advances, the physics of the
universe is being comprehended in ways only dreamt of a decade ago.
The CMB, already having played a central role in the current
understanding, is the premiere tool for making the next advances.
Measurements of the polarization and fine scale angular distribution of
the CMB directly address the following questions: what were the sources
of dynamism in the universe just 300,000 years after the big bang?
what are the properties of the new form energy, the recently discovered
"cosmological constant"? how exactly did the first cosmic structures
form? and how much of the universe is made of the material of
which we are made?